Number Theory, Algebraic Geometry & Representation Theory

Abstract for award DMS-0401525 of Gunnells

This proposal concerns problems in number theory, algebraic
geometry, and representation theory in three broad areas. First, the PI is focusing on topics related to cohomology of arithmetic groups and
allied areas, such as geometry of locally symmetric spaces and their
compactifications, modular curves and rings of modular forms, and
special values of L-functions. Second, he is investigating the
geometry of canonical Kazhdan-Lusztig cells in affine Weyl groups.
Finally, he is joining F. Hirzebruch and D. Zagier in the updating of
their book, The Atiyah-Singer theorem and elementary number theory.

This proposal deals with number theory, algebraic geometry, and
representation theory. Number theory is the study of the properties
of the whole numbers, and is the oldest branch of mathematics.
Algebraic geometry studies geometric figures that can be defined by
the simplest of equations, namely polynomials. Representation theory
is the systematic study of symmetry, through the development of simple
mathematical objects that encode the fundamental irreducible pieces of
symmetry. Today the questions and phenomena addressed by these
subjects serve as driving forces in much of contemporary mathematics
research. Moreover, the subjects have contributed many applications
in such diverse areas as codes and data transmission, robotics,
chemistry, physics, and theoretical computer science.